ITR: Static Checking in an Extended Type System

CCR-0082560
Static Checking in an Extended Type System

PIs: Natarajan Shankar and Sam Owre

Abstract:
A safe programming language is one whose type system can, at compile time,
detect potential runtime errors such as null dereferences, out-of-bounds
array indices, division by zero, and inapplicable method invocations. Few
widely used programming languages are safe in this sense. Specification
languages like PVS, however, contain safety features such as predicate
subtypes and dependent types that can be used to ensure the absence of
runtime errors. The design of safe programming languages requires an
integration of specification and programming languages through the use
of enriched type systems. These types increase the expressiveness
and naturalness of both executable descriptions (programs) and
non-executable descriptions (mathematical specifications).

We extend the type systems for widely used languages, such as Java, with
PVS-like specification constructs. We develop an effective static
typechecker for this type system that detects many common programming
errors. The research builds on advances in programming languages, type
theories, program optimization techniques, decision procedures, and
program analysis methods, and tools such as LCLint, ESC, and BANE. An
extended type system for programming languages can be a foundation for the
design and development of well-specified, efficient, and safe programs.